Experimental Study of Turbulent, Axisymmetric Buoyant Plumes

This study deals with fundamental research in buoyant convection. The objective is to investigate the mechanics of heat and mass transfer in plumes in turbulent flow. The laser Doppler technique will be employed to examine plume characteristics such as velocity and shear stress distributions at different elevations. This technique has been acquired as a result of a recent study at one of the world's leading institutions for experimental heat and mass transfer research.